Research in Superconductive Devices for Integrated Circuits

Advances in fabrication and analytical equipment have provided new opportunities in superconductive materials and devices. A new system is procured for deposition and analysis to fabricate and study superconductive device structures. The system has a load-lock chamber, a sputter chamber with two well-isolated eight-inch heads, and a separately pumped analysis chamber which is equipped with an X-ray photoelectron spectroscopy system for surface analysis. The system also is equipped with an ellipsometer and a residual gas analyzer. It will be computer-controlled for accurate repeatability of depositions, and wafer transfer from chamber to chamber is effected without opening the system. This system will be used to study two different types of superconductive devices. In one, niobium or niobium nitride electrodes will be deposited on a crystalline silicon substrate that is heavily doped in the (0.1um) gap between the electrodes. The interfaces between the electrodes and the silicon substrate are crucial and will be analyzed using the ESCA system. In the second case, whole-wafer trilayers of niobium (or niobium nitride), amorphous silicon, niobium (or niobium nitride) will be fabricated for use as Josephson junctions.